CAREER: Robust Controllers for Large-Scale Interconnected Systems: Applications to Web Handling Systems

Prabhakar R. Pagilla, Oklahoma State University
9982071
CAREER: Robust Controllers for Large-Scale Interconnected Systems:
Applications to Web Handling Systems

Large-scale interconnected systems appear in a variety of engineering applications
such as large structures, power systems and manufacturing processes. Web handling
systems for web processing lines are true examples of large-scale interconnected
dynamic systems with a large number of control and measurement variables. A web is
any material in continuous flexible strip form which is very long compared to its
width and very wide compared to its thickness. Examples include paper, fabrics,
adhesive tape, photographic film and strip metals. Modeling and robust control of
large-scale interconnected systems with applications to web handling systems is the
focus of this research. Accurate dynamic models for the web and the basic elements of
web handling systems, such as accumulators and dancers, will be developed. Based on
these models robust decentralized controllers will be developed. Significant
practical problems in web processes such as disturbances due to misalignment of
rollers and improperly wound rolls will be studied, and robust control schemes to
reject these type of disturbances will be designed. Research activities are
integrated closely with education plans through common usage of equipment and
bringing research problems into undergraduate and graduate curriculum. The education
plan includes distance learning activities such as teaching courses via
two-way-compressed-video and developing short courses for practicing engineers. The
proposed work has significant impact on improving the performance of continuous web
process lines. The theory development focuses on fundamental issues and general
control structures for large-scale systems and hence it will be relevant to other
applications. The proposed distance learning activities and short course preparation
will provide practicing engineers to get easy access to university courses.